Mathematical Sciences: Presidential Young Investigator Award

Original abstract under grant number DMS-8657555 is still valid. Professor Hopkins has transferred from Princeton University to the University of Chicago.